Collaborative Research: Benthic Fluxes and Paleoproxies: Establishing Bottom Boundary Relationships for Ba, U, Mo and Ge

The PIs will measure trace elements (Ba, U, Mo, Mn, and Ge) in Jahnke's existing benthic flux chamber samples dating back to 1997. The goal is to establish bottom boundary conditions governing the regeneration and burial of several tracers used to interpret past ocean chemistry, circulation, productivity, carbon flux and redox conditions. Existing sites include a wide variety of oceanic environments. The samples will be screened with low-precision ICP-MS methods and subsets of selected samples will be analyzed with high-precision ID-ICP-MS. Selected pore water samples will also be screened and analyzed. These data will
be used to understand processes controlling transfer across the sediment-water interface and quantitative relationships with other parameters.